Structure of the Nucleon and Few-Body Nuclear Systems with Electron Scattering

This award provides support to investigate the internal structure and
dynamics of the proton and neutron, and of the lightest nuclei in
nature: deuterium and helium. The investigation will be based on
experimental studies of high-energy electrons scattering off hydrogen,
deuterium, tritium and helium nuclei. The proposed research will use
the high-intensity, high-energy electron beam of the Thomas Jefferson
National Accelerator Facility to bombard nuclei in cryogenic target
environments and to study the nuclear reaction products with particle
detection devices using superconducting magnets and subatomic particle
detectors. The results are expected to provide fundamental information
on the distributions of the three quarks inside the proton and neutron,
on the quantum mechanical wave functions of deuterium and helium, and on
the mechanism of the interaction of the proton and neutron constituents
of these two light nuclei. The expected experimental data from the
proposed investigation will offer valuable input to our understanding of
the structure of the proton and neutron in terms of their three quark
constituents and to the establishment of a consistent modern theory
describing the simplest nuclear systems.